Ceramic Microcarriers for Mammalian Cell Culture

9361727 Kang The goal of this project is to demonstrate the feasibility of a process for producing ceramic cell adhesion microcarriers with controllable surface area, porosity, particle size, density, and weight. This is achieved by a combination of sol-gel and aerosol techniques. A controllable monodispersion of spherical seed particles is first produced to form the basis of the microcarriers. These seed particles are then fused into larger spherical agglomerates with the high surface area required for cell adhesion. Finally, a coating is added for biocompatibility if required. In Phase I, process feasibility will be demonstrated by producing silica-based microcarriers and testing them for surface area, porosity, and biocompatibility. In Phase II, optimization studies to control properties to produce particles optimized for particular mammalian cell applications will be conducted. ***